Conference: Summer Geometry Initiative

This award supports the 2023 offering of the Summer Geometry Initiative (SGI), to be held online July 10-August 18, 2023. SGI is a six-week program supporting a cohort of undergraduates and early master's students in entering research in geometry processing. In the first week of SGI, participants will attend hands-on tutorials introducing the theory and practice of geometry processing; no background or previous experience is necessary. During the remaining weeks, participants will work in teams on research projects led by faculty and research scientists in this discipline, while attending talks and other sessions led by visiting researchers. SGI aims to broaden the pool of students applying for PhD programs and employment related to geometry processing and applied mathematics more broadly; it has a long track record of increasing the size and diversity of the pool of new members of the community.

Geometry processing has a long history of breakthrough developments that have guided design of 3D tools for computer vision, additive manufacturing, scientific computing, and other disciplines. Algorithms for geometry processing combine ideas from disciplines including differential geometry, topology, physical simulation, statistics, and optimization. The tutorials and research in SGI bring SGI Fellows and other participants up-to-date with state-of-the-art ideas in this emerging discipline and introduce them to leaders in the field with whom they collaborate on exploratory research projects.

Website: https://sgi.mit.edu/